Random Matrix Theory and Computations

The PI will study major problem in random matrix theory and their
applications. One question is what mathematical abstractions are
responsible for the universality of random matrix theory formulas.
The PI will investigate whether a certain stochastic Hermitian
operator will yield new insights. This point of view allows the study
of general beta formulas beyond the traditional beta=1,2, and 4
available in much of classical random matrix theory. As part of
this project we will produce software for random matrix integrals,
Jack polynomials, and orthogonal polynomials of matrix argument.

Random matrix theory is becoming increasingly important as the formulas
that were obtained in this once esoteric field are now finding
application in areas as far reaching as array processing, numerical
analysis, computational complexity, and traditional fields of
mathematics and physics including combinatorics, integrable-systems,
and so many other fields. This is randomized "linear algebra."
The random matrix techniques developed today will become important
tools for scientists and engineers in the coming decade.